How Do Bilayer Lipids Affect Sugar Transport in Native and Synthetic Membranes

In order to understand both the physical and physiological function of a water soluble enzyme, the enzyme must be considered in the context of its environment. This is true also for intrinsic membrane enzymes. Drs. Melchior and Carruthers have demonstrated that the activity of a "model" membrane enzyme, the human erythrocyte sugar transporter, is a function of the lipid composition and physical state of the membrane in which it is embedded. They have shown that just as features of the aqueous milieu of water soluble enzymes determine their activity, there are features of the lipid bilayer which determine the activity of intrinsic membrane enzymes. Considerations of the behavior of membrane enzymes cannot be divorced from considerations of properties of their resident membrane bilayer. The research will now be extended to elucidate the mechanisms by which bilayer lipids influence the activity of membrane enzymes. Drs. Melchior and Carruthers will determine the nature of those interactions of lipids with membrane proteins that alter enzyme activity. They will continue to use as a model system the human erythrocyte sugar transporter molecule. By the coordinated use of a variety of techniques for monitoring transporter function, transporter structure, bilayer structure and state, a unique understanding of the function of a membrane enzyme in the context of its bilayer environment will be obtained.